RIA: New Techniques for High-Level Synthesis

Research is on high level synthesis tools that translate a program-like behavioral description into a design suitable for implementation. The tools must meet designer constraints, especially timing constraints, while producing high quality designs. The research is being done in three phases. First, algorithms are being developed to produce an initial schedule that meets timing constraints, thus providing a starting point for the synthesis process. Second, a new framework is being developed for synthesis and design exploration using simulated annealing. The framework represents scheduling and allocation decisions and provides a set of moves that will modify designs while maintaining all timing constraints. Third, it is planned to expand the framework to incorporate physical design information and to provide a bridge to logic synthesis tools.